Research Priorities--Earth Science and Medicine

A National Research Council ad hoc committee will assess the present status of research
at the interface between medicine and earth science, and will advise on the high priority
research activities that should be undertaken for optimum societal benefit. The
committee will report on the most profitable areas for communication and collaboration
between the earth science and medical communities, recognizing both the infectious
disease and environmental components.
The proposed activity will span the earth science and public health fields, seeking to
provide much broader awareness and understanding of research endeavors at the interface
of these fields as well as raising awareness of environmental contributions to diseases and
human health. The study will provide a focus for this emerging scientific discipline to
identify the most promising and important research priorities.
The proposed activity will:
Enhance the infrastructure for research and education, by recommending
strategies for enhanced collaboration and cooperation between the earth science
and medical/public health communities;
Enhance scientific and technological understanding, by preparing a report for
broad dissemination that will describe the connections between earth science and
public health, addressing both positive and negative societal impacts over the full
range from large-scale interactions to micro-scale biogeochemical processes;
Provide benefits to society, by identifying basic research needs in bioscience and
geoscience required to support medical geology research, and by suggesting how
future efforts should be directed to anticipate and respond to public health needs
and threats.